CAREER: A Compilation Framework for the Development of High Performance Secure Applications on Trusted Processors

Intellectual Merit
The trusted processor model is a promising model for designing highly secure systems. However there are several drawbacks that limit its application as a highly trusted computing base.This CAREER project will address these drawbacks in a compilation and language framework to fill the gap between a secure application developer and the secure processor for the provision of a programming environment with high efficiency, usability and security. The successful development of the proposed research will greatly impact the design and implementation of system level security protection

Broader Imapct
The educational component of this proposal will be integrated in institutional efforts of curriculum development, and will have an extendeded impact nationwide on education in system security. Eventually, wide adoption of the trusted process model for developing high performance secure applications will hopefully take effect.